RINGS: Power Resilient NextG Data Centers

Next-generation data centers will operate under tight and variable power envelopes. Renewable energy and an increase in extreme weather lead to more power supply variability. At the same time, fluctuating data center utilization caused by user churn increases power demand variability. Power demand and supply have to be kept in balance at increasingly short timescales and resiliency of data centers to power events is paramount for their availability. This project's goal is to build and evaluate a data center power control plane (PCP). PCP can control power demand at a fine granularity and over short timescales by making it software-defined. The key is to gracefully trade off power and quality of service over time. This allows PCP to shed or consolidate load to conserve power during a power event. PCP aims to reduce recovery latency from power disasters, outlive power disruptions, and improve the energy efficiency of next-generation data centers via power oversubscription. Several research questions are addressed to make PCP practical, such as how to scale power demand and supply instrumentation and control; how to leverage the diverse power envelopes of various processing devices available in a data center; how to determine sheddable load, and how to control it transparently; how to further reduce fail-over and recovery latency from power outages?

Next-generation data centers will provide time and life-critical services to a large portion of society globally. By providing power resiliency, this project has the potential to dramatically improve next-generation service availability, to enable critical services, and to avert power disasters to save lives, reduce the blast radius of a power emergency, and constrain the cost of a power disaster. The work will also influence the education of the next generation of systems engineers, as associated project materials can serve as courseware emphasizing power resiliency to better prepare students for these changes touching every aspect of computing.